Engineering Research Equipment Grant: Microscopic Image Analysis of Concrete

A research equipment grant is awarded to assist in the procurement of a Zeiss Stereomicroscope with a linear point count inspection system. The stereomicroscope with the image analysis system will permit magnification of a specimen surface with the resulting image recorded by a video system. The stereomicroscope with the line point counting inspection system is a special purpose instrument which optically samples discrete points (small areas) on the speciman to determine if the image is due to a solid or a void. The results of a sweep along a line are statistically analyzed by a micro processor to determine void count, size, and spacing.